1996 FASEB Conference: Folate, B12 and One-Carbon Metabolism; to be held August 3-8, 1996 at Vermont Academy, Saxtons River, VT

9515513 Shane This conference, which is sponsored by the Federation of Societies for Experimental Biology, concerns many aspects of folate, B-12, and one-carbon metabolism. A variety of researchers will come together to present their work and discuss it with others in the field. Participation of young investigators is particularly encouraged. ***